Newton's Apple Multimedia Collection

Twin Cities Public Television (TCPT) purposes to develop "Newton's Apple Multimedia Collection" from their unique collection of multimedia-based science instruction materials built from the successful PBS series. These materials will be designed to stimulate creativity and improve the quality of teaching and learning for all grade levels. This pilot project will include three discs of 25 to 30 segments selected from over 200 in the areas of physical, life and earth sciences. Technology education will be included in many of the video segments and addressed in greater detail in the printed support materials. Each segment will be from 5 to 10 minutes to supplement active classroom learning. It will include the development of video teacher workshops, printed teacher support materials and computer software. The video discs will be produced in Spanish and English and a videodisc version for the hearing impaired. This project has a well documented rationale on conceptual change, curriculum development models, and effectiveness of videodisc technology and television usage.